Active and Passive VLF Wave-Particle Interaction Experimentsfrom Siple Station, Antarctica: Mechanism and Diagnostic Application

This award will continue the analysis of Very Low Frequency (VLF) radio wave data acquired from Siple Station, Antarctica and the magnetically conjugate station in Quebec between 1973 and 1989. Over this period the U.S. Antarctic Program operated a VLF transmitter at Siple which has produced a very large and unique data set which has already provided new insight into the structure of the Earth's magnetosphere. The investigators at Stanford University will continue to analyze and theoretically interpret the experimental results. In addition, they will digitize selected analogue tapes and archive them for future research.